Finite Universe Data Structures and Algorithms

Random access machines typically have fixed, bounded word size. This research concerns the computational complexity of solving data structure and algorithm problems on such machines, assuming that the input descriptions for computational problems involve quantities that individually fit into single machine words. Specific topics include the inherent complexity of data structure problems in the cell probe model of computation, the complexity of memory mapping encodings, and the construction and applications of new data structures that perform searching with sublogarithmic complexity.